Acquisition of a High-Field Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation Program and the Instrumentation and Instrument Development Program will help the Department of Chemistry at the University of Kentucky acquire a Nuclear Magnetic Resonance (NMR) spectrometer console and probes which will be used in research investigations in the following areas of Chemistry. 1) NMR Studies of Metallacumulenes and Carbide Complexes. 2) NMR Studies of Water Transport Across Erythrocyte Membranes. 3) The Influence of Local Fields on Protein Reactivity. 4) Studies on Boron-Nitrogen Compounds. 5) Photoaffinity Probes for Natural Products Binding Tubulin. % % % Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.